Competition & Biodiversity in Heterogeneous Landscapes: Model Simplification through Moment Equations

Pacala
9807755
The primary goal of this project is to interpret
analytically the effects of spatial environmental heterogeneity
on the community dynamics and biodiversity of ecological systems.
Simulation models and experimental studies have convincingly
demonstrated the importance of endogenous and exogenous spatial
heterogeneity, such as variation in resource supply rate or
topography, to the coexistence and the maintenance of diversity
in ecological communities. However, both mathematicians and
ecologists still lack analytic understanding of the mechanisms
operating, particularly in fully spatial, stochastic
environments. The investigators extend existing analyses of the
effects of heterogeneity by using a wide range of models (from
metapopulation models to interacting particle systems and point
processes); they develop moment approximations, which express
spatial population dynamics in terms of mean densities and
covariances, to simplify the analysis while preserving both
exogenous and endogenous heterogeneity. The study uses moment
approximations, and more standard techniques, to analyze the
effects of environmental heterogeneity, endogenous heterogeneity,
and their interaction on population dynamics and competitive
outcomes in ecological models of plant and marine intertidal
communities.
Field ecologists have long known that small-scale
variability in environmental factors such as soils or temperature
can affect the structure and diversity of ecological communities
--- which and how many species can live together in a region.
Ecological modellers, however, have often found simple
explanations for small-scale spatial patterns of biodiversity,
caused by interactions between plants or animals (such as
competition or predation), that ignore environmental variability.
Computer simulation models have recently gone a long way toward
reconciling these two camps, but (1) simulations show that
patterns occur, but do not always explain why; and (2) even
powerful computers have limits (it could be foolhardy, for
example, to attempt to simulate every tree on a continent in
order to predict the effects of global climate change). This
study develops simple mathematical models that combine spatial
variability caused by interactions between organisms with spatial
variability caused by the environment to explore how these two
kinds of variability affect the structure and diversity of
communities. The results from these simple models will eventually
show how to build more complex and realistic models that can
predict patterns of biodiversity and ecosystem productivity, and
will provide a much more general understanding of how variability
in the environment leads to diversity in ecological communities.